IDPU/WG: Educating the Science and Engineering Workforce in Collaboration with Women's and Gender Studies Programs: A North Carolina State University Initiative

This project is a two-year initiative of the Women's and Gender Studies Program and the Women in Science and Engineering Project at North Carolina State University. A sequence of seminars for science, engineering, and mathematics (SEC) faculty and teachers who want to revise their SEM course syllabi to include the new scholarship on women and people of color, followed by an evaluation of the extent of those revisions and their impact on students' attitudes and behavior. Goals are to foster ties between SEM and women's studies curriculum initiatives; to evaluate if/how the new scholarship can encourage an inclusionary culture in SEM courses; and to develop a prototypical and national model evaluation process. A third of the participants already teach women's studies courses that have science content. Women's studies scholarship is defined as a "social innovation" that has a "diffusion" process. Using sequential surveys, interviews, and observational data, an evaluation will be done on how faculty adopt and implement the scholarship in their courses, how the students respond to it, and the degree to which students' attitudes and behaviors change as a result. This approach contributes a much needed empirical component to SEM-women's studies collaborations.